Improved Aequorin for Ca Assay in Functioning Cells

9403183 Shimomura The photoprotein aequorin first isolated by the P.I. in 1962, has been widely used as an indicator for cellular calcium for more than 25 years. In the last several years, three improved forms of aequorin were made available: 1) various iso-forms of aequorin isolated from natural aequorin, with properties considerably different from each other; 2) recombinant aequorin prepared from the apoaequorin genetically produced in E. coli, which can be mass produced, and 3) more than 30 kinds of semi-synthetic aequorin have been obtained by replacing the coelenterazine moiety of aequorin with various synthetic analogues of coelenterazine. Semi-synthetic aequorins showed various properties that are highly advantageous in measuring calcium, including the widely different ranges of sensitivity to calcium. Recently, a new trend in the use of aequorin began. In the new method, apoaequorin is genetically produced in cells utilizing aequorin cDNA, then the apoaequorin is intracellularly regenerated into aequorin by the addition of coelenterazine and finally the recombinant aequorin produced is used to study calcium in the cells. The next objectives of this research are: 1) Further improvement of semi-synthetic aequorin, based on the data of various semi-synthetic aequorins that contain various coelenterazine analogues modified at position 2 of the imidazopyrazine ring. 2) In the new method that involves the production of semi-synthetic aequorins in cells, the regeneration of aequorins from apoaequorin and coelenterazine analogues is a crucial step that is strongly influenced by the characteristics of the analogue used. Thus, the characteristics of all coelenterazine analogues will be investigated, and the analogues that are suitable for intracellular aequorin regeneration will be identified. 3) Various preparations of aequorin, including isoaequorins and semi synthetic aequorins, will be produced for the purpose of distribution to cell biologists and p hysiologists for their use in research. In addition, coelenterazine analogues suitable for the intracellular regeneration of aequorins will also be supplied. 4) On the basis of the recent discovery that some of the coelenterazine analogues are extremely sensitive and highly specific to superoxide anion, the measurement and monitoring of superoxide anion in biological systems with those analogues will be explored. %%% One of the most important components of cellular signal transduction is the calcium ion. Levels of intracellular calcium are closely regulated and changes of calcium are commonly involved as steps in the cascade of responses to extracellular signals. The mechanisms by which cells control internal calcium and how calcium changes are involved in cellular signaling are major current themes in cell research. Much current research in this field has been made possible by the availability of indicators that measure intracellular free calcium and determine its location within cells over the time course of a physiological response. The subject of this research is aequorin, a naturally occurring complex of a protein (apoaequorin) with an associated smaller organic molecule (coelenterazine). When one aequorin molecule binds a calcium ion it gives off a pulse of light. Aequorin is thus an invaluable tool for measuring and localizing intracellular calcium. This laboratory first isolated aequorin from a marine jellyfish in 1962 and has since, primarily with NSF support, developed a wide range of important variants of the aequorin molecules for various applications in cell biology research. The next goals of this project are to produce further specialized calcium indicators and, if possible to develop variants to extend the use of the components of aequorin to measure another class of important cellular signal molecules, superoxide anion. These indicators will be made available for use in research on a wide range of problems in biology. ***